Enhancement of Plastics Engineering Technology Program

This project is enhancing the undergraduate plastics processing laboratory experience utilizing an injection blow molder to demonstrate the process, analyze the systems components, measure processing conditions and relate simulation analysis to the laboratory experience. The students are using leading edge computer technology, including solid modeling, finite element analysis, mold flow, mold cooling and polymer flow. The comprehensive laboratory experience results in an understanding of the operation of processing machinery. Students will also develop and manage an engineering project and present the project before their peers and professionals in their field.